Fluidized Bed Combustion Through Controller Logic and Learning Systems

The plan is to develop a fuzzy controller with learning capabilities. The controller is to be able to upgrade its performance by using non-fuzzy techniques. The research is to develop a new control technology-fuzzy logic control. Fuzzy logic and learning theory are used in controlling complex dynamic processes. The process in this research is a fluidized bed combustion system. The plan of the research follows: l) develop simple computer model of fluidized bed combustor (FBC), 2) formulate control policy by interviewing FBC operator, 3) simulate fuzzy logic controller on digital computer, 4) implement fuzzy logic controller on existing small- scale FBC, 5) compare implementation with simulation, 6) apply learning control algorithms and conduct tests with new controller, and 7) compare old controller with new controller.